A Dynamical Systems Approach to Partial Differential Equations and Other Infinite Dimensional Dynamical Systems

9803164
Wayne

This project will involve the study of the long-time behavior of solutions
of partial differential equations and other infinite dimensional dynamical
systems. Of particular interest are systems defined on unbounded domains
and infinite dimensional Hamiltonian systems. In such systems it is often
not obvious what the principal modes and mechanisms governing the
stability or instability of solutions are. A main thrust of the research
project will be to identify invariant, finite-dimensional objects in the phase
space of these systems which govern the long-time behavior of solutions.
Among the specific examples to be studied are dissipative partial
differential equations like the Cahn-Hilliard equation or systems of
reaction-diffusion equations, which will be analyzed using invariant
manifold theorems, and infinite dimensional Hamiltonian systems to
which will be attempted to extend the Kolmogorov-Arnold-Moser
Theorem. Finally, the project will include attempts to give rigorous
estimates of the validity of some of the modulation equations used to
approximate traveling waves in fluid mechanics.

The sorts of equations that will be studied arise in many applications such
as the formation of patterns in biological and physical systems,
crystallization, and the motion of waves in the ocean. They are all
characterized by the fact that even though it is impossible to solve the
equations which govern their motion explicitly, applications require at
least a qualitative understanding of the behavior of their solutions. This
research is aimed both at providing such a qualitative understanding, and
also at explaining the limits of such approximate solutions. A prime
example of this situation is the study of tsunamis. It is experimentally
observed that disturbances of the ocean surface generate large, solitary
waves which travel enormous distances over the sea surface without
change of form. It is impossible to solve the equations which describe
such waves exactly, and while a number of model equations which
describe such traveling waves exist, the mathematical justification of such
models is lacking. One of the goals of the research in this proposal is to
give a rigorous derivation of the approximate equations that govern wave
motion of fluid surfaces. This will both help to clarify which of the various
physical models gives the best description of the actual waves, and should
also shed light on how better models can be developed.